Introduction of FT-IR into the Chemistry Laboratories

The Deparment of Chemistry is acquiring a Fourier transform infrared spectrophotometer for use throughout the undergraduate curriculum, including senior research projects. Students in organic chemistry are using the instrument to study the kinetics of esterification reactions, hydrogen bonding as a function of molecular structure and concentration, while those in advanced laboratories investigate the composition of commercial polymers and bonding parameters in small, gaseous molecules.